Optical and Far Infrared Studies of Semiconductor Heterostructures

This project deals with electronic and magnetic properties of semiconductor heterostructures. These materials are being studied with far infrared (FIR) and visible spectroscopy. The heterostructures are fabricated in-house. The project has three components. First is FIR magnetospectroscopy of interfaces between III-V semiconductors and II-VI based diluted magnetic semiconductors, in order to determine how the two-dimensional electron gas on the III-V side of the interface is affected by proximity to magnetic electron wave functions from a DMS material. Second, the fundamental electronic and magentic properties of digital alloys (ultra-short-period superlattices grown monolayer- by-monolayer) are being studied by spectroscopy. Finally, the program concentrates on optical studies of DMS materials in which band tuning can be achieved by Zeeman adjustment of the band alignment at interfaces.